Collaborative Research: Parental Guidance and Supervised Learning

From early childhood throughout early adulthood, individuals are under
the supervision of parents, caregivers, teachers, advisors, and other
experts. Typically, supervisors can influence, at least to some extent,
the learning activities of young people. A basic trade-off emerges in
the learning environments, such that a supervisor may wish to prevent
the learner from making costly mistakes, but in doing so hinder the
learning process. This research project develops a family of formal
theoretical models of supervised learning, and analyzes their
predictions. Within these models, key features of successful adult
supervision identified in the child development literature may be
understood as the result of the parent's optimizing behavior. Similarly,
the analysis can shed light on the widely documented variability in
parenting practices across different human societies, as well as across
animal species.

Understanding the role of adults as experts supporting children's
learning activities is a long-standing objective in developmental
psychology, and the focus of a sizable experimental and empirical
literature. The theoretical approach pursued in this project complements
the mainly experimental and empirical approaches adopted in the child
development literature.